High Speed Network Measurements: Techniques and Tools

This award provides funding for two years of work focused on the measurement and analysis of network performance from the perspective of endpoint applications. To date, much of the high performance network measurement activity has focused on the core network and its potential. This work will help to develop understanding about the additional problems faced in marrying campus infrastructures and LAN infrastructures to a high speed backbone. Building on prior work with tools such as OCXmon, Coral, SNMP, and others, the research will utilize experiments customized to high speed applications and will incorporate the data collection, postprocessing, and eventual opportunity for network feedback to applications for purposes of adaptivity or monitoring. One additional emphasis will be to work with those engaged in developing new generations of network-based applications in order to factor in their requirements and to verify the measurement results.